Establishing the I-Conference: Intellectual Bases and Value of Interdisciplinary Research

This award will support the first I-Conference for Information Schools ("i-schools') whose focus is on the interdisciplinary and multidisciplinary research and education related to Information and Communication Technologies (ICTs). This conference will bring together faculty, students, and deans to articulate the challenges of i-schools, which include identity formation, curriculum development, academic life, and appropriate research agendas. One outcome will be increased visibility of i-schools and their vision to the larger academic community. Another will be to pull together a coherent community of scientist and educators who care about the study of ICTs and who will develop the next generation of scientists and educators.